Sedimentation and Diagenesis of the Creede Fm., CO: Subsurface Evaluation and Correlation with Outcrop Studies

Sedimentary and volcaniclastic strata of the Oligocene Creede Formation (San Juan Mountains, Colorado) encountered in research and exploration cores will be examined in order to evaluate environments of sedimentation and controls on diagenesis in an intracaldera environment. The project will complement ongoing surface study of depositional environments and diagenesis of the Creede Formation. Depositional environments will be identified based on criteria established from outcrop study, and a sample suite based on sedimentary facies will be collected. Petrologic and mineralogic examination will also be used to identify the sequence of diagenetic events. Stratigraphic correlation of core and surface sections will provide a framework for interpreting cross-moat changes in depositional patterns and diagenesis. The results will provide (1) a more complete model for sedimentation in an intracaldera environment, (2) a better understanding of the complex diagenetic system that operated following Creede deposition, (3) constraints for modeling the structural and depositional evolution of caldera moat basins, and (4) a sedimentologic framework for testing the hypothesis that Creede sediments played a major role in the evolution of fluids responsible for Creede district mineralization.